Localized Electronic States in Amorphous Semiconductors

Experimental investigations of the properties of amorphous semiconductors, especially metal-chalcogenide glasses, with the intention of understanding the defects which occur in these materials. Also to be addressed are questions regarding the microscopic origins of optically-induced paramagnetism and photodarkening in semiconducting chalcogenide glasses. A broadly-based experimental program will be applied, including methods such as magnetic resonance spectroscopy, optical spectroscopies, combinations of optical and magnetic resonance techniques, and electrical measurements.